Individual Video Assisted Instruction in Signal Processing for Mechanical Engineering Students

The purpose of this project is to prepare undergraduate mechanical engineering students in the use of contemporary signal processing techniques as part of their instrumentation laboratory course experience. The students will use a digital storage oscilloscope, a menu-driven X-Y plotter, and a sweep/function generator in conjunction with existing laboratory equipment to prototype and test a variety of signal conditioning and signal processing circuits and systems. Groups of three students each will perform their investigations in a video-assisted individualized instruction, multi-stationed undergraduate laboratory. The new equipment along with existing laboratory equipment and the innovative video teaching system will offer individualized, hands- on experience for the students in the use and understanding of modern signal processing. This experience is most pertinent for engineers using control instrumentation found in industrial integrated manufacturing systems.